Presidential Young Investigator Award: Robot Dynamics and Control

This project addresses several robotics research issues. They include generation of robot dynamics equations of motion using symbolic manipulation software; control concepts which will increase speed of response, robustness, and ability to reject disturbances; experimental studies on the relationship of end-effector stiffness to joint and link flexibilities; and robot simulation using solid modeling with an emphasis on collision avoidance.